Non commutative geometry, microlocal analysis, and symplectic geometry

The aim of this project is to extend the study of non-commutative
differential geometry of deformation quantization algebras, and to apply it
to symplectic geometry. A deformation quantization is a new multiplication
law on an algebra of function on a manifold which depends on a formal
parameter. When the value of the parameter is zero, then this product
becomes the usual product of functions. All such deformation quantizations
were classified by Kontsevich. The simplest examples of them arise from
algebras of differential operators on manifolds. In our previous work, we
computed for all deformed algebras basic invariants of non-commutative
differential geometry (Hochschild and cyclic homology, etc.). We applied
these results to prove generalized Atiyah-Singer index theorems. Our main
tool was what we call non-commutative differential calculus, which is an
extension of classical algebraic constructions with forms and multi-vectors
to non-commutative setting. The new project is aimed at developing both
non-commutative geometry and algebra of deformation quantization, in
particular a theory of modules over deformation quantization rings, and at
applying them to symplectic geometry, in particular to the Fukaya theory of
Lagrangian intersections and to mirror symmetry.

The main aim of this project is to develop what we call non-commutative
differential calculus. By this we mean an extension of the clasical
multi-variable calculus to the case when the variables no longer commute,
i.e. when the value of the product is no longer independent of the order of
factors. Such situations arise very naturally in mathematics and physics; in
quantum mechanics, the non-commutativity expresses mathematically the
uncertainty principle of Heisenberg. We intend to apply the non-commutative
calculus to so called deformation quantization, a geometric setup very much
motivated by quantum mechanics. Our previous work in this direction yielded
new proofs and generalizations of classical theorems about solutions of
partial differential equations; our new project aims at applications to
geometric questions of mathematical physics, such as string theory, mirror
symmetry, and Lagrangian intersections.